Planning and Managing the ERC and I/UCRC Annual Meetings

This award provides funding in FY 2007 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC) and the Industry/University Cooperative Research Centers (I/UCRC) Programs during FY 2007 and FY 2008.